Design, Validation and Dissemination of Measures of Content Knowledge for Teaching Mathematics

This proposal seeks to develop and validate measures of teacher's knowledge of mathematics. The proposal has three parts. In the first part, the researchers will develop new measures of teachers' knowledge of upper elementary and middle-grade algebra, geometry and teachers' ability to interpret student thinking in algebra. In the second part, they will validate existing measures of mathematics knowledge for teaching by conducting interviews and observing teachers, mathematicians and non-teaching professionals. In the third part, they will develop a strategy for supporting MSPs in the use of these instruments.